MPWG: Female Role Models in Science: Out of the Periphery and Into the Core Curriculum

9353760 Frank The goal of the project is to increase the curricular resources available for improving the science education of both females and males. These curricular resources will help middle school life sciences students and high school biology students to: o view science as an exploratory activity, done by real people, and involving hands-on, inquiry approaches; and o expand their image of scientists to include women from diverse groups and time periods. Specifically, this short-term, highly-focused project will develop, review, and test a set of instructional and motivational drop-in modules for middle school life science and introductory high school biology classes which will allow teachers to easily integrate information about female science role models into the curriculum while increasing the hands-on, inquiry approaches used in class. These materials will be coordinated with curricular goals for introductory biology and with the goals and methods proposed by national standards projects, including the National Research Council's Science Education Standards Project, AAAS' Project 2061, and NSTA's Scope, Sequence, and Coordination. The modules will be evaluated in middle and high school classrooms for their usefulness and student impact. Teachers participating in this in-class evaluation will include participants in the American Physiological Society's (APS) Summer Research Program for High School Teachers and in the Ohio State Systemic Initiative - Project Discovery. In addition, the modules will be evaluated by participants in a series of workshops for high school and middle school teachers at meetings of the National Association of Biology Teachers, the National Science Teachers Association, the American Association for the Advancement of Science, the Association for Women in Science, and the American Physiological Society. Finally, the modules will be reviewed by the National Association of Biology Teachers' Publica tions Review Team, the APS Education Committee, and the APS Committee on Women in Physiology. The materials will be disseminated widely through workshops and notices from an alliance of professional associations, including the APS, AAAS, AWIS, NABT, and NSTA. In addition, the APS will disseminate the materials via workshops with teachers at each of its annual meetings in coming years. ***